Measures of Subjective Variables in Visual Cognition

When people are asked to do a number of cognitive tasks involving vision, such as imaging an object or searching for a particular object in a large visual array, it is well known that certain physically measurable, "objective" aspects of the display, such as its complexity, influence how people do the tasks. In addition, subjective aspects, ones that cannot be measured physically, such as familiarity or meaning, also influence people's performance. Few experiments have separated objective from subjective variables sufficiently that one can tell conclusively which ones underly particular experimental effects. The experiments in this research project will isolate subjective variables from objective variables and will examine the role of subjective variables in a series of visually-based cognitive tasks, including imagery tasks, search tasks, and perceptual reversal tasks. These tasks are all potentially influenced by the viewer's knowledge regarding the structure of the shape to be imagined or manipulated. The research flows from the notion that subjective effects in visual cognition are mediated by the viewer's structural knowledge regarding the particular components from which a shape is constructed and the relative locations of these components; the greater the structural knowledge, the faster images can be manipulated, searched, and scanned, and hence, the more efficient the viewer's performance. The experiments will test this notion and, in the process, will attempt to separate the construct of structural knowledge from that of wholistic processing and to examine the interaction between spatial attention and structural knowledge. Finally, the research will develop a functional taxonomy of tasks to identify the types of processing that yield subjective effects. The hypothesis is that these effects will occur when tasks permit the mental manipulation of categorizable, basic- level shapes rather than requiring manipulation of detailed particular shapes. This taxonomy of tasks, together with the construct of structural knowledge, may be useful in identifying the "functional vocabulary" of visual cognition that is employed in real-world tasks requiring speed and accuracy.